A Research Grade Microscope with Epiflourescence and Nomarski DIC Capabilities and an Integrated Image Analysis System for the University of Puerto Rico Humacao

This award provides funds for the purchase of a research grade microscope with epifluorescence and Nomarski DIC capabilities and of an integrated image analysis system to enhance the existing research facilities in the Department of Biology at the Humanco campus of the University of Puerto Rico. The integrated image analysis system will consist of a high resolution CCD camera, video CCD camera, controller/computer, image analysis software and printer. The instrumentation will significantly improve research capabilities in microbial ecology and neurobiology, and facilitate study of DNA damage by radiation and pollution in the environment. The equipment will enable undergraduate research students to participate in collaborative projects with faculty, and to be trained in use of techniques that take advantage of recent progress in light microscopy, and related improvements in image collection and analysis.